Computable Mathematics

In this project the principal investigator will apply methods
from computability theory to study the effective content and
proof-theoretic strength of various areas of mathematics. In
particular, he will concentrate on computable model theory and
algebra, reverse mathematics and effectiveness of combinatorial
principles, and effective notions of randomness and relative
randomness. In computable model theory, this project will
continue the development of methods to address issues raised by
effectivizing model-theoretic notions. These issues include the
relationships between the different ways that a given structure
may be effectivized, the relationships between the degree of
effectivity of different models of theories with few models, and
the differences between the computability-theoretic phenomena
that can occur in general and those that can occur within
well-known classes of structures. Hirschfeldt will also study
computability-theoretic and proof-theoretic aspects of
combinatorial principles, exploiting the connections between
effective mathematics and the reverse mathematics
program. Finally, the principal investigator will study the
structure of (effectively approximable) reals under notions of
relative effective randomness defined through the use of
prefix-free Kolmogorov complexity of initial segments.

The study of the effective content of mathematics has received
increasing attention in the last few decades. It is a natural
outgrowth of the efforts to understand and formalize the notions
of algorithm and computable function undertaken in the early part
of the twentieth century. It is of both pure mathematical and
foundational interest, and has important connections with
computer science. This project aims to further our understanding
of how structure affects computability, and how computability
interacts with other fundamental notions of modern mathematics
and foundations of mathematics, such as randomness and
proof-theoretic strength. Computability theorists have developed
a highly successful theory of relative computational complexity
of sets of numbers, which, in addition to its intrinsic
mathematical interest, has been influential in theoretical
computer science. One of the goals of this project is to continue
the development of an emerging parallel theory of relative
algorithmic randomness, which can act as a theoretical framework
in which to consider questions such as: When should we say that
an infinite set is more random than another, and what
consequences does the relative randomness of sets have for their
relative computational complexity?